Science Enrichment for Nebraska Talented Rural Youth (SENTRY), 1991

The Nebraska Wesleyan University will initiate a three-week, multidisciplinary, residential Young Scholars project for 48 students entering grades 11,12. Students will undertake laboratory and field experiences in two of four disciplines offered (Biology, Chemistry, Physics and Computer Science) as well as a research project in a single discipline. They will report results to school personnel at a special banquet; other evenings will focus on science-related careers. During 1991-92 instructors will maintain contact with participants and make at least one visit to each participant's school to consult with teachers and conduct demonstrations involving the participant and classmates.